RUI: Development of Frame Extensions and their Applications, II

A continuing project relating to applications of pseudoframes for
subspaces (PFFS) is proposed. Pseudoframes are frame-like systems for
the linear analysis and synthesis of a subspace X. They differ from
frames in that both analysis and synthesis sequences are not necessarily
contained in X. Theme 1 of the project studies constructions of
biorthogonal wavelets (via PFFS) that incorporate the regularity
requirement and the perfect reconstruction principle with practical
optimal design criteria. Theme 2 studies the application of the
geometrical properties of PFFS in simultaneous noise removal and signal
reconstruction. PFFS generate non-orthogonal projections onto X along
any complementary subspace of X. This enables a technique of noise
removal by having the null space of the projection to contain the noise
subspace. Studies in theme 3 will be on the applications of PFFS to
sampling and linear inverse problems in noisy environments. Given a
convolution or (non-ideal) sampling operation, one can apply PFFS to
specify an available reconstruction subspace X for the best
(reconstruction) result. We will study examples of how accessible
reconstruction subspaces X should be selected and how reconstruction or
deconvolution is carried out via PFFS. Performance of these techniques
will also be studied.

All signal analysis systems break a signal into components. The
principal novelty that we introduce to signal analysis is the idea of
PFFS systems. PFFS is a tool to analyze a subspace X while standing
outside of X. In doing so, one is given the freedom and additional
"room" to perform signal decomposition and analysis in X by using
advanced means not available in X. Consequently, PFFS systems are more
flexible than most others in that they can be designed to produce the
most useful components for denoising and signal reconstruction purposes.
This study will develop multiple PFFS systems designed to solve a number
of different signal analysis problems in broadband communications,
target recognition, and signal/image restoration/de-blurring, etc. In
particular, we hope to advance the art of image compression to achieve
high compression rate with the least artificial distortions such as
check-boarding effect (showing checkerboards on the decompressed image)
and ringing effect (showing blurring on the edges). Similarly, we expect
to develop tools for improving speech signal compression by reducing
leakage from one frequency band to another. More generally, the methods
we will develop can be tailored for noise removal and accurate
reconstruction of digital signals in a number of different signal
processing environments.